Purchase of an NMR Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules insolution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. This award from the Chemistry Shared Instrumentation Program will help the Department of Chemistry of the University of Virginia to acquire a high-field NMR spectrometer. Included among the areas of chemical research that will be enhanced by the acquisition are the following: 1) Synthetic methods and total synthesis of organic compounds 2) Chemical models of biological systems 3) Structure elucidation/synthesis of natural products able to mediate chemically interesting tranformations/effects in biochemical systems.